Investigations in High Energy Physics

Research focussed on quantitative investigations of the strong nuclear forces will be performed. The study of the strong forces among elementary particles using quantum chromodynamics, the theory of the strong force, is of critical importance in interpreting the results of experiments using high energy accelerators and in testing the validity of quantum chromodynamics as a central component of the "Standard Model" of elementary particles. The planned research, which will approximate space by a discrete lattice of points and use computers extensively, will also contribute to the important national goal of extending the capabilities of massively parallel supercomputers and of building a pool of mathematical physicists skilled in state of the art of computational physics.